Applied Mathematical Logic

The investigator's research integrates a number of diverse areas in
mathematics: logic, set theory, algebra, topology, and analysis,
as well as some automated reasoning techniques from computer science.
In topology, the investigator focuses on properties of
Stone spaces, compact homogeneous spaces, and Bohr topologies.
Topology and analysis are integrated in this research; measure theory is
used to construct topological spaces with interesting properties,
while the topological properties of a space are used to prove theorems
about the possible measures which can exist on the space.
The investigator studies Bohr topologies, which involve giving a topology
to arbitrary abstract groups or other structures; this subject has its
roots in the harmonic analysis of the 1930s; modern questions in this
area relate to general topology, Fourier series, and functional analysis.
Logic and set theory are relevant because results in topology and measure
theory are frequently independent of the usual axioms of set theory; when a
result is proved independent, the methods used are those of formal logic.
In algebra, the investigator works on algebraic systems such as
quasigroups and loops. Automated reasoning tools are very useful
here, primarily in the study of non-associative systems. These
systems are described by fairly simple axioms, and a computer search
can often reveal interesting new consequences of these axioms.
However, the investigator combines the computer use with
classical arguments involving combinatorics and group theory.

There are two distinct, but related, threads to this research.
The first thread involves the expansion of our knowledge of traditional
pure mathematics. There is no specific practical application in mind
here, although topology arises naturally in an attempt to generalize
properties of the geometry of physical space, and measure
theory is a natural extension of the notion of probability.
The second thread involves automated reasoning (AR) tools. AR allows the
computer to derive logical conclusions from given knowledge. This subject
has been in existence since the 1960s, but it is only in recent years that
the hardware and software have become powerful enough to discover conclusions
which could not have been discovered without computer assistance.
This second thread is a continuation of the investigator's work in
improving the AR tools and using these tools to create new results
in mathematics. This is of interest not only for the
mathematics itself, but because it demonstrates the power of the tools,
which can then be applied to reasoning tasks in other areas of science
and engineering, as well as to autonomous decision making by robotic agents.